FW-HTF-P: Interactive Multi-Human Multi-Remote-Robot Operations for the Future of Construction Work

The overarching goal of this Future of Work at the Human Technology Frontier (FW-HTF-P) project is to create a collaboration framework for multiple human workers to team with multiple remote construction robots of various types. These human-robot teams have the potential to improve operational efficiency and scalability and thus anticipate imminent problems challenging the future of the construction industry, including a shortage of skilled labor, an aging workforce, occupational safety challenges, and stagnant productivity. However, realizing the best outcomes will require new approaches for human-robot collaborative operations in constrained and complex construction workplaces. Potential benefits to the nation are significant, given the critical economic and societal roles of the construction industry. Activities under this Project Development award will include development of a proof-of-concept worker-in-the-loop interface to support preliminary studies with industry partners at construction sites with varying work environments and operation scenarios. The preliminary studies will be supported by workshops, focus groups, training sessions, and surveys. Expected outcomes of the project include improvements to work efficiency, overall work productivity, worker safety and well-being, and recruitment and inclusion of a diverse workforce, including older workers. Ultimately the project has potential benefits for the fields of construction engineering, artificial intelligence, robotics, learning sciences, and workforce training, as well as architecture, engineering, construction, and human and social science.

This award will build an interdisciplinary team of academic researchers and industry stakeholders with a deep understanding of the applicability and potential of multi-human-multi-remote-robot (MHMRR) collaboration, toward the goal of an innovative and interactive MHMRR collaboration framework with Avatar Construction Workers able to collaborate with remote heterogeneous construction robots through transparent and reliable on-site knowledge transfer. Two project development activities will be conducted to achieve this goal. First, the research team will build a prototype of a worker-in-the-loop MHMRR interface that is reconfigurable for various construction operations and integration of different new and emerging technologies. Second, the research team will draw upon partnerships with relevant stakeholders in both the construction and technology industries to design and conduct preliminary studies of MHMRR collaborations under a representative selection of realistic conditions. Experimental design and recruitment of additional partners will be accomplished through multiple activities, including workshops, focus groups, training sessions, and surveys. The Project Development activities supported by this award will result in the formation of an integrated team including academic researchers, engaged industry partners, specialized research infrastructure, a foundation of supporting preliminary results, and a research agenda tailored to advancing the critical field of MHMRR for construction. The outcome has the potential to revolutionize existing construction industries and to provide convergent solutions for technical and workforce bottlenecks.